Physics Of Solid State Polymerization

Solid state polymerization is a technique commonly employed for increasing the molecular weight of condensation polymers after bulk polymerization has been completed. Solid state polymerization offers one of the most attractive routes for obtaining extremely high strength, high modulus, thermally stable, chemically resistant polymers. The technique involves heating the polymer to within about 50oC of the observed melting temperature in an atmosphere in which various molecular weight building reactions are driven towards completion by the removal of low molecular weight condensation byproducts. The chemistry of solid state polymerization is relatively well understood, the mechanisms responsible for the enormous increase in tensile strength of thermotropic polymers have not been fully elucidated. This work is aimed at obtaining a better understanding of the large increase in tenacity that sometimes occurs during the solid state polymerization of oriented thermotropic polymers. Specific polymers that facilitate analysis of end group clustering, mobility, and reaction will be synthesized in order to elucidate the effect of end group mobility, reactivity, or clustering. The changes in the number of end groups, and their proximity will be followed using solid state NMR after solid state annealing. The effect of heat treatment will be analyzed using some chemical and physical techniques. It is hoped that the work will elucidate the optimal mechanisms for the synthesis of stiff, strong, chemically resistant, essentially defect-free, high dielectric, and lightweight materials.